Formal Power Series and Algebraic Combinatorics Conference; Summer 2009, Linz, Austria

In July 2009, the twenty-first international conference entitled
Formal Power Series and Algebraic Combinatorics (FPSAC) will be held
at the Research Institute for Symbolic Computation of the Johannes
Kepler University in Linz, Austria. As in the past, there will be
nine plenary speakers, about twenty-five contributed talks, and two
poster/software demonstration sessions. The continuing success of the
annual FPSAC conferences stems in part from their considerable
interdisciplinary breadth---linking leading researchers in
combinatorial mathematics with strong researchers in allied fields
such as pure and applied mathematics, computer science, physics, and
biology. The span of this conference series is unique among
international conferences with an emphasis on combinatorial
mathematics.

As well as its breadth, a second distinguishing characteristic of
FPSAC conferences is the concerted effort to recognize and encourage
outstanding young scientists. This is accomplished in part by
choosing at least one plenary speaker to be an ``emerging'' star and
by ensuring that talented young researchers are well represented among
the speakers selected for contributed talks. Another special feature
of the FPSAC conferences is a continuing effort to emphasize
inclusiveness among participants. The conference seeks to draw
substantial participation from groups which have been traditionally
under-represented in the mathematical sciences. FPSAC 2009 will be an
excellent opportunity for these students and junior researchers to
make both domestic and international contacts that will be of great
value in their developing careers. This grant support their
attendence. Additionally, because of the variety of past locations
(2008: Chile, 2007: China, for example), FPSAC draws a truly
international crowd.